Calculus, Concepts, Computers and Cooperative Learning: Assessment and Evaluation in Terms of Dissemination Goals

9450750 Dubinsky This project is engaging in assessment, evaluation and research into how students learn mathematical concepts to determine effects of the calculus reform curriculum and dissemination activities from the previously supported Calculus project at Purdue. Assessment activities will be closely related to research into how students learn mathematical concepts and will also include studies of the effect of the role of the teacher when changed from instructor to facilitator and the use of group learning. Current dissemination approach will include the preparation of an Instructor's Resource Manual, workshops and the continued growth and development of a network of implementers. A model will also be developed for evaluation of student attitudes, performance, and conceptual understanding in comparison with students who took calculus in standard models.